Mathematical Sciences: Symmetry Methods and Nonlinear Analysis in Elastomechanics

9407738 Healey The main focus of the proposed work will be the analysis of partial differential equations with symmetry in connection with applications to elastomechanics. The latter will involve geometrically exact formulations of nonlinearly elastic and visco-elastic solids and structures. The proposed wrk has three essential goals: (i) to obtain new qualitative results and detect new phenomena; (ii) to obtain global continuation results for problems of 2 and 3-dimensional elasticity; (iii) to further pursue and exploit the connection between symmetry and nodal properties in global bifurcation problems for elliptic equations. This work has several potential applications to "real-world" engineering problems. First, the occurence of symmetric structures in engineering practice is ubiquitous - due in part to esthetics, and in part to optimal load-carrying capacity (typically based upon linear analyses). However, such structures are also susceptible to symmetry-breaking instabilities. The fruits of this research will help to provide a systematic approach to the (necessarily nonlinear) analysis of such instabilities. Second, a qualitative nonlinear analysis of a concrete class of problems, parameterized by general constitutive laws, often illuminates the specific roles of material behavior inattaining thresholds of instability. In this way we are able to classify material behavior with an eye toward engineering design of structures.